Microbiological Acetate Conversion to Propionate: Condi- tions, Kinetics and Implications in Anaerobic Waste Treat- ment

Research is conducted on microbiological aspects of anaerobic processes used for treatment of wastewater. Conditions under which complex organic compounds in wastewater are transformed into low-molecular weight fatty acids and then into methane are investigated. Results of this work may be applied in improvement of engineering design of wastewater treatment processes and systems that depend upon anaerotic biotechnological phenomena.